Louis Stokes Alliance for Minority Participation Phase IV

PROJECT SUMMARY
Page A
The Louis Stokes Mississippi Alliance for Minority Participation
LSMAMP
James Perkins-LSMAMP Project Director
Jackson State University
PROJECT SUMMARY
The LSMAMP institutions are focusing their collective resources on the rich pool of STEM
students to motivate and mentor them toward BS, MS degrees and impact significantly on the
number choosing the pathway to a STEM doctorate. The synergy that will result from these
institutional interactions to increase minority Ph.D.s will transform the instructional,
research and administrative aspects of cooperation among these institutions in ways never
before envisioned. The requested support for continuation of the LSMAMP to Phase IV will
accelerate this process and contribute to increasing the numbers of minority students
entering the Ph.D. pipeline. The funding of the Phase IV program will continue to
strengthen the foundation for institutionalization of the program in the state of
Mississippi.
The MAMP Bridge to the Doctorate program, coordinated by JSU for the alliance and
supported by NSF, provides the resources to support 24 minority students to pursue
graduate STEM degrees (MS) and then bridge to doctoral programs at MAMP institutions or
other doctoral institutions across the nation. The MAMP Bridge to the Doctorate program
was distinguished as being only one of two in the nation to place 100% of their Cohort I
Bridge to the Doctorate students into doctoral programs. The program developed for Cohort
I students will be shared with all MAMP institutions as a model to be replicated on each
MAMP campus to leverage the NSF funding and increase the total number of undergraduate
MAMP students targeting doctoral studies. Students’ having undergraduate research
experiences is fundamental to the success of the Bridge to the Doctorate program.
Undergraduate research will be a major focus of the Phase IV MAMP program. Each MAMP sites
will provide undergraduate research experiences for their students. MAMP sites will place
students in research internship positions at MAMP institutions or at partner institution
sites. MAMP students will present their research at the annual MAMP research symposium.
Students will also be encouraged to present the results of their research projects at
state and national conferences and meetings such as the Mississippi Academy of Sciences
(MAS), the National Council on Undergraduate Research, the NSF JAM Conference, ABRCMS, and
other professional conferences in their disciplines. The large number of minority students
attending the MAS conference each year, and the steadily increasing number presenting
papers, has benefited the students and has made an indelible impression on the Academy,
fostering a climate of increasing diversity in the scientific environment of the state and
region.
The Phase IV MAMP will include a fresh approach to tracking students after they complete
their BS. A robust website incorporating web-portal technology will be developed to
support communications, networking and student tracking across the MAMP community.
Intellectual Merit: The goal of the LSMAMP program is to establish a secure pathway for
underrepresented minority students to obtain BS, MS and PhD degrees in science,
technology, engineering and mathematics. This proposed project will build upon existing
relationships between MAMP institutions, and partnering institutions, e.g. University of
California campuses, LBL, LLNL, AGEM and MRC to increase the number of minority students
enrolling and matriculating in MS and Ph.D. STEM graduate programs within and outside of
the state of Mississippi. Broader Impacts: The LSMAMP program will increase the number of
Ph.D. degrees in STEM areas awarded to minorities, especially African-Americans. We will
PROJECT SUMMARY
Page A
provide well-qualified and diverse faculty members for U S universities and colleges, as
well as impact the number of scientists and engineers holding the doctorate for employment
in the STEM workforce.